Research Experiences for Undergraduates in Chemistry and Biochemistry at the University of Oklahoma

Norman Dr. Richard W. Taylor and other members of the Chemistry Department at the University of Oklahoma are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1996-98, ten undergraduate students will spend ten weeks each summer actively engaged in basic research projects drawn from the traditional areas of chemistry and biochemistry. Students from the central and midwest regions of the United States are offered a research experience designed to play a pivotal role in leading them to pursue a career in chemical research.